Core IP Support in System Specifications for Systems-Level Interface Optimization

The increasing capacity of integrated circuits (ICs) permits complex components, referred to as intellectual property or cores, to reside as a system on a single IC. A key difference from the past, where each component was a distinct IC, is that now the component interfaces are flexible and can thus be optimized for a particular system. This project develops an approach for specifying system behavior such that cores are sufficiently encapsulated but still have optimizable interfaces. The approach addresses modeling and refinement through multiple specification levels, starting from an object-oriented model and ending with a connection of components, from which existing methodologies take effect. The specification approach is being applied to several examples, which span a variety of interface architectures with diverse performance, power consumption, and size metrics.